NSF Young Investigator

9458201 Handel A holy grail in structural biology is the ability to predict three dimensional structure from protein sequence, and conversely, to identify sequences that will adopt a predefined 3-dimensional fold. This requires a thorough understanding of the hierarchy of energetic forces that dictate protein structure. De novo protein design has been a useful approach for investigating these forces and understanding the sequence-structure relationship in proteins. To this end, computational techniques are being developed in order to facilitate protein design. In order to simplify this problem initial studies involve repacking of the protein core rather on redesign of the total protein. This allows investigators to limit sequence space to hydrophobic amino acids, and energy terms to Van der Waals and solvation energies. Despite this simplification, choosing the identity of core residues in a protein is a complex combinatorial problem; the difficulty lies in the requirement that the residues simultaneously satisfy conditions of high density packing and favorable interaction energies with the protein backbone and other side chains. The complexity of protein folding is dealt with in two ways in this project. First the range of possible side chain orientations is restricted by calculating rotamer libraries for the target structure being repacked. Secondly, genetic algorithms are used to search through the reduced but nonetheless enormous set of possible residue-rotamer combinations. These algorithms are efficient optimization routines which "evolve" highly fit sets of information depending on the selection criterion. The information sets are combinations of side chains in designated orientations (a structure) and the criterion is based on the lowest Van der Waals and/or solvation energy. Experimental study of predicted cores is of fundamental importance to increasing the understanding of the rules of protein folding and to improve computational strategies. Thus, repacke d proteins are subsequently produced by recombinant methodologies, and their structures characterized in great detail by biophysical techniques including heteronuclear multidimensional NMR. %%% A holy grail in structural biology is the ability to predict three dimensional structure from protein sequence, and conversely, to identify sequences that will adopt a predefined 3-dimensional fold. This requires a thorough understanding of the hierarchy of energetic forces that dictate protein structure. De novo protein design has been a useful approach for investigating these forces and understanding the sequence-structure relationship in proteins. To this end, computational techniques are being developed in order to facilitate protein design. In order to simplify this problem initial studies involve repacking of the protein core rather on redesign of the total protein. This allows investigators to limit sequence space to hydrophobic amino acids, and energy terms to Van der Waals and solvation energies. Despite this simplification, choosing the identity of core residues in a protein is a complex combinatorial problem; the difficulty lies in the requirement that the residues simultaneously satisfy conditions of high density packing and favorable interaction energies with the protein backbone and other side chains. These studies will also use NMR methods to look at the dynamic structures of a developmentally important transcription factor from the helix-loop-helix family of proteins, as well as on proteins involved in lymphocyte chemotaxis and activation. These proteins will be investigated by using a combination of biophysical and molecular biological techniques.